CAREER: Design and Analysis of Restarted Iterative Methods for Linear Systems, Eigenvalue Problems, and Model Reduction

Applications throughout computational science require the solution
of large-scale linear systems and eigenvalue problems, tasks that
are often accomplished using Krylov subspace projection methods.
Nonsymmetric matrices pose a particular challenge, with accurate
solutions often requiring a combination of restarted iterations
and effective preconditioning. This project seeks to develop an
improved understanding of the convergence of restarted Krylov
subspace algorithms for linear systems and eigenvalue problems.
The behavior of such methods depends not only upon the eigenvalues
of the matrices involved, but also on nonnormality and properties
of starting vectors. These latter issues complicate analysis and
can lead to algorithm failure; new insight into the mechanisms
that spawn such failure will inform the design of improved
restarted methods. The project will also consider the important
role of preconditioners. Projection methods for dimension reduction
of large-scale problems raise related concerns. Reduced-order models
may capture salient eigenvalues of the original system, yet miss
important transient features of the solution that are of physical
significance, especially if the model derives from a nonlinear system.
Throughout this project test cases will be drawn from applications
such as fluid dynamics.

Large-scale linear algebra problems play a central role in many areas
of computational science and engineering, with applications ranging
from fluid dynamics and circuit simulation to neuroscience and data
mining. Though the efficient solution of such problems is essential to
high-fidelity mathematical modeling and the nation's fastest computers
devote many cycles to this challenge, several of the most important
algorithms are unreliable and not yet understood. This project seeks
answers to fundamental questions concerning the behavior of such methods,
with the goal of gaining insights that will lead to more rapid and
reliable algorithms. Given the many fields that rely on these
techniques, such improvements will have broad application
throughout the scientific computing community. To complement the
research program, this project includes an important educational
component comprising the mentorship of graduate and undergraduate
students, the development of a graduate course, and the broad public
dissemination of educational material for numerical analysis, a core
discipline for students preparing for careers in computational science
and engineering.